U.S.-Japan Cooperative Research: A Union of Quantal and Semiclassical Methods for Molecular Collisions Using Generalized Quantum Defect Theory

This award will facilitate cooperation between Dr. Frederick H. Mies, Molecular Physics Division, Center for Atomic, Molecular, and Optical Physics, National Institute of Standards and Technology (NIST), and Professor Hiroki Nakamura, Department of Theoretical Studies, Institute for Molecular Science (IMS), Okazaki, and members of their research groups. Collaboration between these two research groups provides a unique opportunity to exploit two complementary skills in molecular scattering theory. The NIST group generally employs the fully quantal close-coupled approach to calculate inelastic and photodissociation cross-sections. The IMS group has devoted its research to the complementary semiclassical description of such processes. The objective of this collaborative project is to borrow the best features of each method to obtain a more complete description of molecular dynamics and spectroscopy. The two groups have already begun an extensive collaboration at this common interface of the two methods with extremely encouraging preliminary results. During this project, the scientists will visit each other's two laboratories to transfer computer codes, compare results, and analyze the data. This collaborative project has two major goals. First, the scientists will explore the limits of the quantal and semiclassical methods with numerically tractable examples. Second, they will use this experience to develop hybrid techniques and new approximations that enjoy the benefits of both methods. The goal is to use semiclassical theory to provide the necessary MQDT (multichannel quantum defect theory) parameters to treat the dynamics and photodissociation of triatomic systems. The focus will be the photodissociation of strongly bound triatomics, using atmospheric molecules as candidates for study.